Fluctuations and Entanglement in Correlated Systems with Electrons and Phonons

Nontechnical Description
The next generation of quantum technologies, including powerful quantum computers and ultra-sensitive quantum sensors, depends on a deeper understanding of how electrons and crystal structures behave in materials. Although researchers have achieved impressive control of quantum particles in quantum-optics platforms and engineered circuits, extending that level of control to solid-state materials remains a central challenge. This project contributes addressing that need by developing a systematic theoretical framework to characterize quantum fluctuations of electrons and lattice vibrations, identify the underlying quantum resource of entanglement, and explore how these properties can be controlled in advanced materials, with particular emphasis on systems in which electronic and lattice degrees of freedom are strongly coupled. By linking concepts from quantum information to solid-state theory and experimental observables, the PI aims to establish a practical roadmap for discovering and designing materials capable of reliably storing and processing quantum information and for enabling dynamic manipulation of quantum functionality with intense laser pulses.

Beyond its research impact, the project also offers a strong interdisciplinary educational component. The principal investigator expands a multi-level mentorship program in the local metropolitan area to provide intensive scientific training and hands-on research experiences for high-school students. Together with professionally oriented workshops, these activities support early-career researchers and help strengthen the workforce pipeline in quantum science.

Technical Description
Characterizing and controlling quantum fluctuations, correlations, and possible entanglement in material-based platforms is a major research frontier in condensed matter physics and a necessary step toward the development of solid-state quantum technologies. However, challenges remain. This project aims to address scientific challenges by developing a systematic theoretical framework for multipartite fluctuations, correlations, and entanglement involving both electrons and phonons, thereby bringing concepts and metrics from quantum information into experimentally relevant materials systems. The project is centered on building a direct connection among spectroscopic techniques that are feasible under current experimental conditions, solid-state theory for electron-phonon systems, and quantum information theory. Numerical simulations of strongly correlated many-body systems with strong electron-phonon coupling provide a way to establish and benchmark experimental relevance. The work also investigates whether ultrafast laser driving can be used to manipulate quantum fluctuations dynamically and engineer transient quantum states.